Integrating Middle School Technology Education Activities With Science and Math Education

Activities that encourage middle school students to learn the concepts of science and mathematics by motivating them with real world situations or interest to them are to developed by technology education community. The activities will use design under constraint - hands-on technology - (as different from hands-on science) to motivate the learning of science and mathematics. The results will include the increased ability of students to apply concepts of science and mathematics to "real-world" situations, increased communications among science, mathematics and technology teachers and research findings on the role and effectiveness of technology-based activities. The project uses teams of teachers to produce materials under the guidance of the principal investigators and science and mathematics educators. Administrators will be part of the team to help work out logistical problems. The materials will be disseminated by a commercial publisher.